Space Weather: Modeling of Geomagnetic Storm Dynamics

This project will undertake major additions to the Rice convection Model (RCM) to increase its accuracy. 1. It will add the Rice Open Magnetosphere Model (ROM) -- a highly mature, physics-based code that ties the RCM to the solar wind and IMF through the magnetopause. 2. It will add a magnetofriction-equilibrium relaxation technique to achieve article and field self-consistency. 3. It will ad a algorithm to take account of internal plasma sources and losses.